Incorporation of Modern NMR Spectroscopy into an Undergraduate Curriculum

9451456 Williams This project proposes to upgrade the teaching of NMR in organic chemistry, analytical chemistry & physical chemistry and facilitate undergraduate research, through the replacement of computer- simulations and photocopies with hand-on use of an FT-NMR Spectrometer by students. The organic chemistry lab will be divided into "mini-research" projects all of which will employ NMR for the characterization of products and the analysis of reaction mixtures. Students in Quantitative analysis will observe a single signal for 2 exchangeable protons and relate it to the concentration of the mixture. Instrumental Analysis students will determine the signal to noise ratio and resolution under various experimental conditions. In the Physical Chemistry lab NMR will be integral in experiments involving relaxation times, magnetic susceptibility and inorganic synthesis. Implementation of this project will considerably affect the level of education offered by the Chemistry Program at Francis Marion University.